EPSCoR in Mississippi

Mississippi's revised proposal to NSF describes a Program Plan designed to increase the competitiveness of selected research scientists in the State over a three year period with a goal of attaining or exceeding the threshold of national competitiveness. Reviews were conducted to evaluate the scientific merit and potential for achieving national competitiveness for the principal investigators and their associates. The revised plan includes 6 components (5 approved herein) in the areas of Chemistry/Materials Science. These components represent investigators in Mississippi's four largest universities (Jackson State University, Mississippi State University, The University of Mississippi, and The University of Southern Mississippi) and the University of Mississippi Medical Center. The component proposals incorporate various mechanisms to remove identified barriers to research, including the acquisition of critical equipment or facilities, addition of technical support personnel, increased faculty release time, an reduction of professional isolation. Mississippi proposes cost sharing in a ratio of about 3/1. A management plan (amended) is outlined which will permit monitoring component project progress to ensure that NSF goals and the goals of the Mississippi Program Plan are achieved.